Industry/University Cooperative Research Center Sensors & Actuators/Phase Out and High-Speed, High Resolution Micro- Optical Scanners

Abstract EEC-9615774 Muller This award provides funding for a three-year collaborative project with University of California, Davis is funded to study the development of an integrated, raster-scanning optical microdisplay - the project will study flexing and sliding hinges, accurate hinge and mirror systems, electrostatic actuators and standard as large-aspect-ratio structures, high available-force actuators based on chosen principle, reduced -specification scanning display, packaging, integration and testing. The award is significantly cost-shared by Dr. Deborah Crawford, Program Director, Communications and Computational Systems program.